Group Travel Grant for Faculty at Minority Institutions to attend NECC'92; Dallas, Texas; June 15-17, 1992

The project requests funds for participation of 50 faculty members from minority institutions to attend the 1992 National Education Computing Conference (NECC'92) in Dallas, June 15-17, 1992. This is an extremely worthwhile endeavor which expands on support we have provided for faculty from minority institutions to attend the Computer Science Conference. The NECC provides a broader view of computers in education focusing on the use of computers across all disciplines. It is critical that faculty at minority institutions attend national conferences of this type in order to become better integrated into the research and education communities. This project represents a strong effort in that direction.